MARGINS Theoretical and Experimental Institute: Volatiles in the Subduction Factory; Workshop: Mt. Shasta, CA, August 2009

Funds are provided to convene a MARGINS TEI (Theoretical and Experimental Institute) for ~ 100 participants to focus on the role of volatile compounds in subduction zones. The workshop will bring together geochemists, geophysicists and modelers to discuss the current state of our knowledge on the budget of volatiles (H2O, CO2, N, F, S, Cl and noble gases) at the two MARGINS focus sites of Izu-Bonin-Mariana and Central America. The sponsorship of the TEI is mainly tied to the Subduction Factory initiative of MARGINS though there is also a shared interest with the SEIZE and RCL groups within the Program. The workshop will ne held at Mt. Shasta in the fall of 2009.